Development of a Catalytic Infra-red Cooking Gas Burner

The successful development of a cooking gas range with major improvements in fuel efficiency and pollutant control is the objective of this proposal. Current concerns of indoor pollution in the U.S., and extravagant waste of fuel in hundreds of million of households in the third world, would make this event a major contribution to mankind. The use of suitably designed catalytic burners, with a geometry suitable to maximize radiative exchange, is the key to this approach. Although a portable propane model is in existence, the design of a model usable with current home fuels (natural gases mostly) is a worthwhile new challenge.